ITR: Mechanisms for Securing Emerging Applications

As computers become pervasive in the home and community, new applications
will emerge that will make daily living easier by automating
or assisting in a variety of human activities. Such
applications will be information rich and they will create and manipulate
sensitive information about the activities of their users, and
the environment in which they live and work. At the Georgia
Institute of Technology, an information rich "Aware Home'' has
been built to explore many such applications. Clearly, it is important
that such applications be secured if they are to be deployed successfully.
This project will undertake a range of research activities to
secure future applications. These include new security policies
for such applications, and intuitive and flexible access
control models. A variety of automatic user identification
techniques will also be investigated to authenticate sources
of requests without requiring burdensome participation from the users
making the requests. New notions of integrity for information accessed from
outside sources will be developed. The authorization, authentication and
integrity mechanisms will be used to build security services
for emerging applications. The use of formal models
will be explored to study important properties of the new security
policies and access control models.